Tectonic Evolution of the Virgin-Beaverdam Extensional Breakaway Zone, Nevada, Arizona and Utah

The physics of lithospheric deformation is primarily a continuum problem relating stress and strain through rheological properties. Progress towards understanding physical processes involves laboratory experiments that directly measure rheological properties in earth materials, and through well-posed natural experiments of lithospheric deformation. This project is aimed at determining the response of the lithosphere to extreme tectonic unloading in an extensional environment. A potential study area is located along the western margin of the Colorado Plateau in the Virgin Mountains, where large-scale mid-Miocene extensional tectonism along down-to-the-west normal faults has transported crustal fragments originally adjacent to the plateau 50-100 km to the west. In the wake of these transported fragments the extensional "breakaway zone" at the edge of the plateau experienced at least 5 and possibly as much as 20 km of uplift. This proposal will examine the Gold Butte block in detail, by structural mapping and laboratory fluid inclusion studies, to determine the degree of internal disruption and the amount of differential uplift and erosion across the rotated block. Results will bear directly on the appropriateness of this area determining the role of isostatic uplift in continental extension, and also on extensional response of the lithosphere generally.